An Experimental Test of An Avian Life History Model

In some species, some mature individuals, called helpers, assist others in raising young rather than reproduce themselves. Studies of such cooperative breeding have been extremely productive in the development of theory related to the evolutionary basis of social behavior in animals. This research will test a general theory known as habitat saturation, which relates group formation to retention of young in an environment in which opportunities for dispersal are limited. The investigators propose that individuals which remain in their natal group as helpers rather than disperse are practicing a strategy for acquiring high quality territories. The species they are studying is unique in constructing cavities in living pine trees, and the investigators propose that birds seek to acquire territories with existing cavities rather than expend the great time and energy required to construct cavities in areas not previously occupied. Previous research showed that the behavior of this species is consistent with this hypothesis. Individuals that serve as helpers become breeders by replacing previous breeders in the immediate vicinity of their natal territory. Some inherit natal territory, others move to adjacent groups. In contrast, individuals that do not serve as helpers, that is, disperse after fledging, wander and may move to territories far from their natal site. This research will test the hypothesis about the ecological basis of habitat saturation and territory quality by constructing cavities in unoccupied habitat. It is predicted that birds will occupy these territories once cavities are present. In conducting this research, the investigators will monitor over 500 banded adults each year. These data provide one of the best demographic samples available for any bird. This is particularly important because the red-cockaded woodpecker is a federally endangered species endemic to the United States, and its population dynamics are of great concern. This experiment, if successful, will provide the first known means by which populations of this rare bird can be increased through management.